Capitol College Connection to the Internet

Capitol College requests support from NSF to connect it's campus to the Internet. Capitol College in Laurel, MD has approximately 1,200 students, faculty and staff. The college intends to connect through BBN Planet, a local Internet service provider. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.